Japan Long-Term Research Visit: Photochemistry of Bacteriorhodopsin

Under this award Professor Thomas Ebrey of the Department of Physiology and Biophysics of the University of Illinois will spend seven months in Japan working with Professor Toru Yoshizawa at Kyota University and his associate, Professor Akio Maeda, conducting research on the photochemistry of bacteriorhodopsin. In particular, they will work on how light causes the pumping of protons across the cell membrane. They will test the hypothesis that bacteriorhodopsin exists in two or more pH dependent forms and will explore explanation for the discrepancies in different values for the quantum efficiency of the photocycle.